Purchase of a Departmental Parallel Processing Computer

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Office of Multidisciplinary Activities (OMA) will help the Department of Chemistry at the University of Colorado purchase a parallel processing computer. This equipment will enhance research in a variety of areas including reactions studies relevant to atmospheric chemistry, fundamental studies of molecular reactivity, and aspects of materials. A network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a `computer network` also serves as a development environment for new theoretical codes and algorithms, provides graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing.